21st Century Scholars: Putting Computer Science, Mathematics and Engineering to Work

The 21st Century Scholars Program is providing scholarships for students studying in the areas of computer science, mathematics and engineering (CSEM). This important program provides a vital link between the workforce needs of Danville's employers and a pool of potential employees in need of the resources to gain vital skills. Objectives are to (a) provide financial assistance for students to earn an associate's degree in a CSEM field and (b) allow area residents to prepare for jobs in the areas that impact the local economy.